Biological Facilities Center

This proposal provides funds to establish a biological facilities center in the Department of Molecular Biology at Vanderbilt University. The majority of the users come from the Department of Molecular Biology, with others being in General Biology, Physics, Biochemistry, nd Pharmacology. The instrumentation will facilitate research in such diverse areas as biophysical and biochemical investigations of biologically important macromolecules, physiological analyses of cellular responses, and differentiation and of host-virus interactions. The goal of this research is to understand evolution, development, and cell function and structure at the molecular level. The investigators are productive researchers engaged in meritorious research.